Approximation Algorithms for Data Networks

This project seeks to develop new algorithmic techniques for the
design of and routing in data networks. Classical network optimization
problems address transportation networks that carry physical
commodities. Data networks are fundamentally different --- data can be
modified, compressed, and replicated at little cost. Incorporating
this flexibility in altering traffic into network optimization
problems can bring about a considerable improvement in the capacities
of communication networks.

This project aims to revisit classical network optimization problems
within a new model where the cost of carrying data is non-linear and
depends on its compressibility. It aims to provide theoretical
underpinnings for new WAN optimization approaches proposed in the
networking literature, including, for example, traffic redundancy
elimination.

The PI considers a model where links in the network can compress data and
remove duplicate packets. For example, if two traffic streams contain
identical data and use overlapping routes, edges carrying both streams
need only transmit the common packets once; these can then be
replicated at routers where the streams diverge. Accordingly, the load
on an edge is a submodular function of the traffic streams that use
the edge. Unlike previous work on network optimization with non-linear
costs, in this model, the cost of routing depends on the identities of
the traffic streams involved, and not just on the total traffic
volume. Most of the problems considered are computationally
intractable and the PI aims to develop approximation algorithms.

Several graduate and undergraduate courses will benefit from this project.